New Curriculum Robotics / Control Undergraduate Laboratory

This project enhances the robotic control track of the Electrical and Computer Engineering curriculum. Under this curriculum, the students are provided with state-of-the-art laboratory equipment that satisfies the demand for the next century. The program accommodates all students of the College of Engineering, including Electrical and Computer Engineering students, as well as Mechanical Engineering and Materials Sciences. The new equipment promotes enthusiasm among the students to learn the basics of robotics. *